Circularly Polarized Soft X-ray Studies of Magnetic Ultrathin Films

9413475 Tonner Magnetic ultrathin films of transition metals will be studied using a variety of surface sensitive techniques including polarized beams of soft x-rays. The types of samples to be investigated include single element ultra-thin films on single crystal substrates, ferromagnetic bi-layers, wedged samples and superlattices. The properties to be investigated include enhanced magnetic moments at surfaces, perpendicular magnetic anisotropy of ultrathin films, and coupling between ferromagnetic layers. Novel magnetic properties found in these materials will be related to possible applications and improvements in magnetic devices. A newly developed x-ray magnetic circular dichroism microscope will be used for fundamental studies of interlayer exchange coupling in wedged samples and to understand micromagnetic interactions in spin-valves, magnetic memory devices, and spin transistors. % % % % Magnetic ultrathin films of transition metals will be studied using a variety of surface sensitive techniques including polarized beams of soft x-rays. The types of samples to be investigated include single element ultra-thin films on single crystal substrates, ferromagnetic bi-layers, wedged samples and superlattices. Novel magnetic properties found in these materials will be related to possible applications and improvements in magnetic devices. A newly developed x-ray magnetic circular dichroism microscope will be used for fundamental studies of interlayer exchange coupling in wedged samples and to understand micromagnetic interactions in spin-valves, magnetic memory devices, and spin transistors. ***